NSF Young Investigator: Compiler and Runtime Optimization Techniques for Parallel Programming on Distributed Memory Machines

The objectives of this research are to develop compiler and runtime optimization techniques for parallel programming on homogeneous and heterogeneous high-performance parallel computers. Specifically, this research addresses the following issues: (1) Scalable Parallel I/O-Scalable massively parallel computers must include scalable I/O systems to provide a balance between computing power and I/O. The thrust of this research is to investigate compiler transformation for parallelizing I/O operations, stripmining and prefetching data, overlapping computation and I/O, generate efficient I/O access schedules, develop runtime support that can recognize and use access patterns to perform efficient parallel I/O, and develop language primitives that allow users to specify parallel I/O operations; (2) Automatic Data Distribution for Homogeneous and Heterogeneous Systems-The goals are to develop algorithms to automatically generate data distributions that incorporate global analysis, use realistic cost models, and that allow dynamic alignments, distributions and data replication; and (3) Runtime Support for Dynamic Data Redistribution-Dynamic data redistribution may be necessary due to explicit program constructs, compiler generated distributions, across procedure boundaries, or adaptive nature of a problem. The goals are to develop parallel algorithms (including communication scheduling, index conversion, and space optimization) for runtime support for dynamic data redistribution.